U.S. - Australia Cooperation: DNA Sequence Analysis and Molecular Evolution

ZERA
9815605

This is a cooperative project between Professor Anthony Zera, School of Biological Sciences, University of Nebraska Lincoln, and Dr. John Oakeshott, Entomology Program Leader in Biotechnology, Commonwealth Scientific Industrial Research Organization, Canberra, Australia. Professor Zera will perform molecular-genetic experiments and sequence analysis under the direction of Dr. Oakeshott. This experience will allow Prof. Zera to gain expertise in this area of biology. The studies will also prepare the groundwork for a long-term collaborative project.